Research Experiences for Undergradates at Furman University

Dr. Lon B. Knight and other members of the Chemistry Department of Furman University are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1993-5, ten undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects range the traditional areas of chemistry-analytical, inorganic, organic, physical and biochemistry. A unique feature of this program is the inclusion of two visiting faculty from regional colleges, who, along with their students will participate in the program.